Modern Optics Laboratory for Engineering Design and Experimentation (Physics)

This award is made as part of the Instrumentation and Laboratory Improvement Program. This Program funds innovative new projects for undergraduate physics laboratories. The project supported here will modernize and equip an optics laboratory for physics and engineering students.